Collaborative Research: NEDG: Throughput Optimization in Wireless Mesh Networks

This collaborative project investigates a number of fundamental
problems that are very critical to wireless mesh network (WMN)
throughput optimization. Wireless mesh networking is believed to
be the most effective and efficient technology for the last-mile
data connection to the Internet. The proposed research targets
to solve the following challenges: 1) Throughput optimization in
MR-MC WMNs: the complexity of throughput-optimal scheduling,
real-time logical topology characterization and inference, the
joint exploitation of both rate diversity and channel diversity,
and game theory based throughput optimization. 2) Non information
theory based approaches to throughput optimization in multi-hop
MIMO-enabled WMNs: stochastically modeling different aspects of
the mesh network, constructing Network Utility Maximization
formulations, and applying Information Geometric Programming to
solve global optimization problems. 3) Biologically-inspired WMN
design for throughput optimizatio n. 4) A testbed to accomplish
experimental tasks to validate the effectiveness of the design.

This project is in nature multidisciplinary. It requires the
joint effort from computer science, electrical engineering,
mathematics, statistics, and biology, and therefore has the
potential to inspire revolutionary methodologies that could be
applied to many domains. In addition, the novelty of the proposed
research has strong impact on wireless research. Furthermore, the
success of this project is able to enhance the four universities?
ability to educate, through the multi-disciplinary research effort,
future scientists and engineers.